Multifunctional Nanostructures for Integrated Electrical, Chemical, Mechanical and Biological Applications: an Interdisciplinary Certificate Program

The primary goal of this Nanotechnology Undergraduate Education (NUE) in Engineering program at Mississippi State University (MSU), entitled "NUE: Multifunctional Nanostructures for Integrated Electrical, Chemical, Mechanical and Biological Applications: an Interdisciplinary Certificate Program", under the direction of Dr. Priscilla J. Hill, is to develop and implement an interdisciplinary Nanotechnology Certificate Program which will be a collaborative effort between the Colleges of Engineering and Arts & Sciences. Its development will be coordinated between 4 departments with existing course modification in 6 departments across the two Colleges. This exciting new educational approach builds upon the research collaborations of faculty in nanoparticle synthesis/characterization, nanowire fabrication/device development, nanoelectromagnetics, bio-nanomaterials, and nanomechanics.

Significant impact is anticipated with university/industry collaborations including technology commercialization and development of spin-off businesses. By equipping students with stronger interdisciplinary background in nanotechnology, this NUE will further promote MSU technology commercialization, helping to create new local employment opportunities and opportunities for student co-op/training.